Questions Related to Curves on Complex Projective Manifolds

The aim of this project is to further the understanding of the
behavior of families of complex curves on a complex projective
manifold X.This will be done by addressing both enumerative
questions (e.g. How may curves are there with given degree and
genus and incidences?) and deformation-theoretic questions
(e.g. What deformations of curves lie in a generic deformation
of X?). Some of the important tools for attacking such questions
include the Atiyah-Bott localization theorem and Kuranishi's
formal deformationtheory. In addition to the research component,
the investigators will restart the successful WAGS
(Western Algebraic Geometry) conferences.

This research relates to counting problems.
For example, given the set of solutions of a polynomial equation
in several variables, how many objects of a certain type (e.g.
lines) lie entirely inside the solution set? We further study
the 'shape' of the collection of objects even in cases in which
that collection of objects is no longer finite. This research is
related to a celebrated modern theory in physics, called 'string
theory,' which proposes to resolve the problem of unifying the
fundamental forces of nature by slightly 'thickening' space-time
in six independent directions. Our research studies the geometry
of the (tiny) cross-section of the universe in those six new
directions.